U.S.-Mexico: Workshop on Complex Fluids: Biomolecular and Biomimetic Self-Assembly; Merida, Mexico, January 4 - 7, 2005

0437846
Schwartz, Daniel K.

This U.S.-Mexico workshop, organized by Prof. Daniel Schwartz, of the University of Colorado at Boulder, and Prof. Rolando Castillo of the Institute of Physics, Universidad Autonoma de Mexico (UNAM), and Prof. Jaime Ruiz-Garcia of the Universidad Autonoma de San Luis Potosi, will address current problems in biomolecular and biomimetic self-assembling systems. Self-assembling systems is a multidisciplinary research field encompassing biology, chemistry, physics, and material and chemical engineering. This workshop will bring together leading researchers, as well as several junior researchers and graduate students, to discuss current developments in the field.

The workshop will include research presentations and discussion on fundamental topics related to molecular self-organization as well as selected applications, including nanomaterials, drug delivery, and biomaterials. The presentations will be organized within three topical areas: 1. Self-Assembly of Peptides and Polynucleotides 2. Lipid and Surfactant Self-Assembly 3. Biomimetic Polymer Self-Assembly. Approximately 25 oral presentations will be divided among these topics, and a general poster session will also be scheduled.